Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

This project will provide computing support for
research on computationally intensive applied
statistical methods: wavelet methods for finding
filiments in two and three dimensional data,
microarray data analysis of gene expression data,
Monte Carlo method of finding interpretable
approximations to black box functions,
spatial smoothing of functional MRI images,
and automatic clustering of flow cytometry data.

The research frontiers of statistics are now a
far cry from the t-tests and chi-squared tests of
introductory courses. Modern scientific equipment
gathers millions of data measurements in complex
settings. For example, biologists measure the
expression levels of thousands of genes on a single
chip, and brain scientists watch maps of brain
activity as a subject performs a task. Handling
data from these and related problems requires new
statistical methods to sort out patterns from
randomness. These methods in turn require
substantial computating power, in both speed and
memory. This project will pay for computating
resources to support five such research areas.